Special Project: 1999 International Workshop on Discrete Algorithms and Methods for Mobile Computing and Communications

9908084
Sen, Arunabha
Arizona State University

Special Project: 1999 International Workshop on Discrete Algorithms and Methods for Mobile Computing and Communications

This award will support graduate student participation to the Third Annual Workshop on Discrete Methods for Mobile Computing and Communications to be held in conjunction with ACM Mobicom '99 in Seattle, WA on August 20, 1999. The workshop, intended to serve as a forum for open discussion and lively debate, will be devoted to discrete algorithms and methods in the context of mobile and wireless computing and communications, an area that is already having and will have enormous impact in our lifestyle over the next several decades.

The workshop, also called DIAL M, encouraging research papers based on work-in-progress, brings together distinguished members of the computer science and engineering community. Since the mobility aspect of the hosts and routers introduces a whole gamut of new research issues, the planned panel discussions and hot topic sessions should highly benefit graduate students.